U.S.-Italy Cooperative Research: Product Imaging

0086356
Houston

This two-year award, which supports U.S.-Italy cooperative research on using product imaging techniques to investigate molecular dynamics, involves Paul Houston of Cornell University and his students and Domenico Stranges and Anna Giardini of the University of Rome, La Sapienza. The objectives of their research are to study cluster photodissociations using a combination of resonance enhanced multiphoton ionization, time-of-flight mass spectrometry, and product imaging to provide a coherent picture of the energetics and dymanics of the cluster.

The U. S. investigator brings to this collaboration his group's improved imaging system using ion counting techniques in conjunction with velocity mapping. This is complemented by the Italian investigators' expertise in photofragment translational spectrometry and cluster photodissociation. The results of this research are expected to uncover new physical phenomena of importance for practical purposes.